Spiral Formation Efficiency Within Spiral Galaxies

This award, to one of the leading young woman observational astronomers, is for studies of star formation efficiencies in young spiral galaxies. State of the art instrumentation will be used to make observations of the distribution of ionized and molecular gas in nearby galaxies, to measure radical gradients in interstellar gas in molecular form. These investigations will help to clarify our understanding of galaxy formation and evolution.